Ensemble Methods for Data Analysis in the Behavioral, Social and Economic Sciences

PROPOSAL ID: 0437169
PRINCIPAL INVESTIGATOR: Richard Berk and Robert D Mare
INSTITUTIONS: UCLA
TITLE: Ensemble Methods for Data Analysis in the Behavioral, Social and Economic
Sciences

ABSTRACT

The analysis of observational data in the behavioral, social, and economic sciences is
commonly undertaken with statistical modeling. Over the past decade, another approach
to data analysis has been evolving in applied mathematics, computer science, and
statistics that some have called ``algorithmic.'' There is usually no effort to construct a
model of how the data were generated. The goal is to link a set of inputs to one or more
outputs so that some clear objective function is optimized by a computer algorithm. This
proposal focuses on ``ensemble methods,'' which are an especially promising special case
of algorithmic methods. The goal this is to help foster more effective interactions
between the developers of ensemble methods and empirical researchers in the behavioral,
social, and economic sciences. The approach is to apply, using real data sets, ensemble
methods to important social science data analysis problems. These include 1) evaluation
procedures for complex computer simulations, 2) diagnostic procedures for conventional
statistical models, 3) adjustments for confounding in observational studies, and 4)
classification and prediction exercises when the response variable is highly skewed. In
each case, the performance of the ensemble methods will be compared to the
performance of conventional modeling using ten assessment criteria detailed in the
proposal.

The proposed application of ensemble methods to real data sets should have several
broad benefits for the behavioral, social and economic sciences, as well as for the
mathematical and statistical sciences. Powerful and rapidly developing data analysis
tools, under the broad rubric of "data mining," will be applied to difficult data analysis
problems. These exercises will illustrate strengths and weakness of ensemble methods for
certain kinds of demanding empirical research. This experience will help inform the
behavioral, social, and economic sciences about when ensemble methods can be useful
and what their limitations can be. Equally important, the applications will provide a ``test
bed'' for a variety of ensemble methods from which will likely emerge potential
refinements in existing ensemble procedures and new technical questions insufficiently
addressed in the current literature. Thus, the mathematical and statistical sciences can
benefit as well. Finally, each of the data sets to be used is potentially rich in substantive
implications. Although the emphasis in this proposal is methodological, it is entirely
possible that the data analyses to be undertaken will also be instructive from subject-
matter perspective.